Hadroproduction of Heavy Beam Flavors at Fermilab (Physics)

The research focuses on the study of the properties of heavy quarks (c = charm and b = beauty) produced by hadron beams at Fermilab. The E769 Experiment is now being analyzed which is expected to contain 10,000 charm events. The next experiment, E791, is expected to contain more than 100,000 charm events and serve as a basis for future studies of b quarks. Sheaff, et al. are at one of six institutions collaborating in these experiments. The collaboration is one of the leading groups in the world working on studies of heavy quarks. The field of research is that of experimental elementary particle physics. This research studies the basic building blocks of matter (e.g., electrons, positrons, quarks and weak bosons) at very high energies. The experiments use accelerators (colliders) which provide the highest energy particles made in the laboratory. The data is collected and analyzed using highly complex and sophisticated apparatus and techniques.